PSID Volunteering Module

This award funds the collection of data on volunteering from families participating in the Panel Study of Income Dynamics (PSID). The PSID is a longitudinal study of a representative sample of US individuals and the family units in which they reside. This award funds the following specific activities: (1) programming and testing of survey questions about participant's philanthropic volunteer activities; (2) administering the new survey questions to approximately 9,150 PSID families via a computer assisted telephone interview; (3) cleaning, processing and documenting the data for public release and archiving the data for release via the PSID's Data Center.

The broader impacts of research using these data include better insights into when, whether, and how volunteer activities improve US communities.